CAREER: Delivering Computational Services over the Internet

This integrated research and education proposal describes a new
server-centric approach to computing based on the premise that
advances in network speed and ubiquity have created the conditions in
which a computer utility can be used to deliver computational services
over the Internet to end users. The computer utility model described
is one in which users' entire computing environment, including all
applications, data, and the window system, reside on
professionally-managed servers. Users can then access their computing
environments from any Internet-enabled client device. The proposed
research will focus on three areas: (1) remote display technologies to
enable remote graphical access to applications without requiring any
application modifications, (2) server resource management mechanisms
to deliver guaranteed levels of performance to large numbers of
interactive users, and (3) server cluster resource management that
will effectively load balance, allocate, and reliably provide
computing resources from a cluster of servers to users and groups of
users. The proposal also describes how the research will be applied
and integrated with curriculum development efforts to develop an IT
distance learning education laboratory for teaching systems courses,
particularly operating systems.